Strategies for Coordinating Disaster Responses

This project will document strategies used by local emergency managers to coordinate responses to earthquakes, hurricanes, floods and other natural disasters. The research has five specific objectives: (1) identify key strategies implemented by local emergency managers to coordinate the functioning of multi-organizational networks that emerge following natural disasters; (2) document the composition and longevity of multi-organizational networks that emerge following natural disasters during four time periods; (3) identify unanticipated components of multi-organizational networks that emerge following natural disasters and document their functions, time and duration of mobilization, and degree to which they are integrated into the overall network; (4) assess the patterned relationships between the range of strategies used and key analytic features of multi-organizational networks that emerge following natural disasters, including speed of formation, stability, and shape; and (5) disseminate the strategies used and policy implications for community response effectiveness to local and state emergency managers. Data will be collected through interviews and questionnaires with a sample of local emergency managers.